HVAC Fast Track: Establishing A Competency-Based HVAC/R Apprenticeship Program

The United States heating, ventilation, air conditioning, and refrigeration (HVAC/R) industry is projected to see an increase in value from $26.5 billion in 2019 to $35.8 billion in 2030. It is projected that over the 10-year period from 2016-2026, HVAC/R jobs nationally will grow 15%. This project will design an accelerated HVAC/R apprenticeship program to support the HVAC/R industry in Northeast Ohio. The program will be responsive to input from regional industry partners regarding the design and implementation of the apprenticeship. It is expected that the competency-based apprenticeship model will allow apprentices to complete the program in three years rather than the five years for a traditional, time-based apprenticeship as apprentices will be assessed for competencies rather than tracked for completion of hours. The apprenticeship will provide a guided pathway that pays participants while they learn and offers apprentices the opportunity to earn a Journeyman credential upon successful completion of the program.

The project team will develop a state-approved, accelerated, competency-based, HVAC/R apprenticeship program to help meet employment demand in the HVAC/R industry and provide students the field experience necessary to quickly move from an entry-level technician role to a Journeyman-certified HVAC/R position. Project objectives include: 1) establish a state-approved, competency-based HVAC/R registered apprenticeship program at Stark State College; 2) enroll students into the apprenticeship with a focus on veteran students and high school students/recent graduates; 3) retain at least 80% of students/apprentices enrolled in the program; 4) prepare students for HVAC/R Journeyman certification upon completion of the accelerated apprenticeship; and 5) evaluate project outcomes and widely share best practices for replication purposes. By working with regional HVAC/R industry partners, local public school districts, community veterans agencies, and area workforce development agencies, the project will recruit apprentices into a career pathway leading to well-paying, high-demand occupations in the HVAC/R sector. The model of a competency-based apprenticeship may be adapted for other industry areas. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.